Engineering Research Equipment: Integrated Human Motion Measurement System

This project will use a three-dimensional motion measurement and analysis system to determine and display gait patterns exhibited by humans under normal daily activities. The equipment, which will be funded partially through this grant, consists of four subsystems: 1) a video image analysis system, 2) a data acquisition subsystem, 3) a computer workstation, and 4) a force analysis subsytem. This equipment will enable an experimental Biomechanics Laboratory to be established in the department of Mechanical Engineering. Among the research projects that will be performed are a study of the influence of load carriage on the biomechanics of walking gait, the design analysis, construction, and evaluation of polyaction knee orthoses, the response of trunk muscles to static and dynamic physical task performance, the influence of load and the method of load carriage on the kinetics and kinematics of stair ascent and descent, and the locomotor characteristics of those with degenerative joint disease.